Crystallographic Studies of Phosphoryl Group Transfer Reactions

9316934 Herzberg The three dimensional structures of proteins involved in phosphoryl group transfer reactions will be determined by X-ray crystallography and the reaction mechanism will be investigated using a combination of crystallographic and site-directed mutagenesis approaches. The phosphoenolpyruvate:sugar phosphotransferase system (PTS) studied during the previous funding period will be investigated further. The project will also include another enzyme, pyruvate phosphate dikinase (PPDK), which shows sequence homology to Enzyme I of the PTS. The PTS is a multi- enzyme system that regulates sugar transport across the membrane by a phosphoryl group transfer chain. The crystal structures of two of the PTS components, HPr and the IIA domain of the glucose permease, have been determined by us during the last two years, and much learned about the nature of the phosphoryl transfer reaction between them at the atomic level. The proposed work will draw on these findings and test our understanding by engineering altered phosphorylation specificity of the glucose IIA domain. The designed mutants will be analyzed biochemically, as well as by X- ray crystallography, to understand the reasons for success or failure. The second part of the studies of the PTS is the structure determination by MIR methods of the first protein in the phosphotransfer chain, Enzyme I, which has been recently crystallized. This will provide a complete structural basis for future investigations of the soluble proteins of the system. The structure determination will be followed by inhibitor binding studies to elucidate the mechanism of phosphorylation by phosphoenolpyruvate (PEP) and of phosphoryl transfer to HPr. The third part is the completion of the structural comparison between the high and low salt forms of HPr, and the structure refinement of the HPr mutant H15A. This work is important for resolving a current controversy related to the question whether phosphorylation of HPr i s associated with a conformational transition of the backbone. Our data shows that this is not the case. In addition to work on the PTS, the scope of the project has been expanded to include PPDK, a multi-domain enzyme that catalyses the inter- conversion of PEP and ATP. Its sequence homology to Enzyme I stems from the common substrate, PEP. PPDK catalyses a total of three phosphoryl group transfers, one of which involves a pyrophosphate intermediate, an unprecedented intermediate in enzymatic phosphoryl transfer reactions. The structure determination of the Clostridium symbiosum enzyme will facilitate inhibitor binding studies and mutagenesis work that probe the various mechanistic aspects of this complex enzyme. The nature of the conformational transition associated with the phosphoryl group transfers, which is proposed to be substantial, will be revealed by these structural studies. %%% The goal of the proposed studies is to gain better understanding of the nature of regulation by protein phosphorylations, reactions which are central to a wide range of biological processes. A combination of X-ray crystallography and protein engineering techniques will be used to elucidate the three dimensional structure of the proteins, and to probe their function by binding studies in the crystals, and by site-directed mutagenesis approaches. Two systems that utilize multi-phosphotransfer reactions have been selected: (a) A phosphoryl transfer chain that mediates sugar uptake across the membrane in bacteria. The three soluble proteins involved, Enzyme I, HPr and Enzyme IIA will be investigated. (b) The enzyme pyruvate phosphate dikinase that catalyses the inter-conversion of two high energy compounds, ATP and PEP, in some bacteria and plants. ***